Modeling and measuring critical data literacies in informal learning environments

Society’s reliance on digital technologies has resulted in enormous amounts of data being recorded, sorted, and analyzed. While improving human efficiency and life quality, data analytics can also reproduce inequities and further marginalize those from non-dominant populations, including women, people of color, and those who live in poverty. This two-year Building Capacity in STEM Education Research Individual Investigator Development project addresses this issue by developing a data science education program for middle school students that examines the social and ethical dimensions of digital technologies. By engaging over 100 counselors, parents, students, and researchers as co-designers of the data science education program at an after-school community-based program, the project has potential to educate a range of stakeholders in computing education. Moreover, it has potential to broaden participation in STEM by providing youth who are traditionally underrepresented in STEM with rich and culturally relevant experiences that may motivate them to pursue STEM majors and careers.

Specific project research objectives are to: (1) measure and model youth’s data science knowledge and practices in the context of social, ethical, and political issues related to digital technologies; and (2) measure youth’s sense of empowerment to enact change in their communities in terms of the ethical use of digital technologies. The project integrates data science education research and sociocultural learning theories to build new theoretical understandings about the nature of data science learning in the context of social/ethical/political issues. This approach can advance knowledge and understanding of how middle school aged youth engage in data practices in ways that are valued within their own cultures and within broader STEM communities. The project also supports the long-term goal of developing theories of critical data science learning and how to engage youth in community programs that promote ethical, culturally responsive, and critical STEM learning opportunities. The professional development objectives are to develop the Principal Investigator’s understanding of participatory design, ability to design for youth in informal learning environments and access to quantitative ethnography tools and methods.

The project is supported through the EHR Core Research: Building Capacity in STEM Education Research (ECR: BCSER) competition that is designed to build individuals’ capacity to carry out high quality fundamental STEM education research in STEM learning and learning environments, broadening participation in STEM fields, and STEM workforce development.